Collaborative Research: Deciphering the Structure and Kinematics of Active Galactic Nuclei with Reverberation Mapping

The goal of this collaborative project is to continue an on-going and successful program of frequent monitoring of the variability in quasar continuum emission and the response of the characteristic broad emission lines to those variations. This provides a probe of the size of the emitting regions, their velocities via the line profiles, and allows an estimate of the mass of the central super-massive black hole. This "reverberation mapping" method is the primary way of measuring the masses of black holes in the central regions of active galaxies out to high redshifts.

Broader impacts of the work include training of undergraduate and graduate students, and postdocs. Public outreach includes involvement in the COSMOS high school summer science teaching program.